Local and Regional Teacher Development Program: Retraining and Upgrading Precollege Physics and Physical Science Teachers

This proposal is a modification of proposals for previous institutes because a survey of applicants for and participants in previous years show that it wil meet the needs of teachers in southern California School districts are reassigning teachers trained in other sciences to teach physics or physical science. The goals of the project are (1) improve the general background of the teachers by providing reliable information "classical" as well as current advances in physics, (2) improve classroom presentations of specific topics by providing important teaching aids, (3) prepare participants in teaching methods in and the use of classroom demonstrations including the means to construct necessary equipment and provision of materials, (4) prepare the more experienced teachers to deliver "in-service" to colleagues in their own schools and (5) provide opportunity for computer useage including a survey of available computer software and interfacing capabilities. These goals will be accomplished (1) by an updated series of lectures, with notes and diagrams provided, by University of California-Riverside faculty chosen for their ability to present at a level appropriate for the targeted group, (2) by individual participant selection of at least 30-40 teaching demonstrations to be constructed by the participants from among 300 demonstrations presented and explained at the beginning of the four-week Institute, (3) by group instruction on science teaching methods using experienced University staff as well as experienced "mentor" teachers, and (4) by the use of the Technical Education Center of the Riverside County Public Schools. An amount equivalent to 23% of the NSF request is being cost-shared by the UCR in contributing half of the salaries for instructional time and all of the cost for the machine shop facilities required for the participant construction of the demonstration material.